The Salmon Project

9352943 Ray The project proposes a decision making model that may be applied to the resolution of development vs. preservation conflicts in all regions of the country. The project is designed to promote student involvement and active participation through fact finding, data analysis and debate. The supplemental materials produced in this project include 1) curriculum guides for students and teachers consisting of three units that contain 10 interrelated study modules (Discovery Threats, Critical Thinking, and Find Solutions); 2) The Salmon Network (Net); 3) The Salmon Project Television Series (8 - ten minute video programs for national broadcast); and 4) The Salmon Project multimedia slide show, software, and CD- ROM(s).